National Chautauqua Workshop Program

The Chautauqua Program is providing an annual series of workshops in which scholars at the frontiers of various sciences and engineering meet for several days with undergraduate college science and engineering faculty. These workshops are providing an opportunity for invited scholars to communicate new knowledge, concepts, and techniques directly to college faculty in ways which are immediately beneficial to their teaching. The primary aim is to enable undergraduate faculty in the sciences and engineering to keep their teaching current and relevant.Date:Contact: Nicholas G. Eror, Dept. of Materials Science and EngineeringTel: (412) 624-9720